Topics in Discrete Groups and Geometry

ABSTRACT
TOPICS IN DISCRETE GROUPS AND GEOMETRY

Richard Schwartz plans to continue his research in
geometry and discrete groups.
One of his main goals is to explore the connections
between three dimensional real hyperbolic geometry
and four dimensional complex hyperbolic geometry.
Schwartz observed that certain complex hyperbolic
deformations of the reflection triangle groups
lead to complex hyperbolic four-manifolds whose
ideal boundaries are real hyperbolic three-manifolds.
As the angles in the triangle group change, the
ideal boundary appears to undergo Dehn surgery.
Schwartz also plans to study quotients of the circle,
based on patterns of geodesics in the hyperbolic
plane which are invariant under the action of a
surface group. The idea is to make
topological models for the limit sets which could
arise in connection with deformations of surface
groups into Lie groups and then use the models
to study actual deformations of surface groups into
Lie groups.

Broadly speaking, Schwartz' research deals with
the geometry of infinite repeating patterns.
A crystal lattice is an example of an infinite
repeating pattern in Euclidean space. Analogous
patterns exist in curved spaces, and often
the curvature of the space allows for the
existence of more exotic and geometrically rich patterns.
Schwartz is interested in the studying these
exotic patterns when they are generated by a simple
mechanism which has a finite description.
For example, one can place several mirrors in
a curved space and look at the pattern generated
by the images of an object which is reflected
endlessly in the mirrors.
The central question is: When does the finite
mechanism of generation lead to an infinite
discrete pattern?